NER: Design, Synthesis, and Characterization of Nanotube p-n Junction Photocatalyst for Destruction of Environmental Pollutants

0102983
Crittenden
This proposal was received in response to NSE, NSF-0019. The goal of this project is to design and synthesize novel TiO2-based nanotube p-n junction photocatalysts. The principal investigators have combined the p-n junction principle and concepts of template preparation of nanomaterials toyield a new general route for preparing nanotube p-n junction photocatalysts. Through this process, they will further understand the nucleation and growth of very small diameter semiconductor nanotubes. The morphology of these TiO2 nanotubes will be analyzed. The photocatalytic activity will be evaluated by examining the destruction of representative organic pollutants in the gas phase.

The proposed research is expected to improve the quantum efficiency for photocatalytic destruction of environmental pollutants by providing a basis for designing and constructing TiO2-based nanotube photocatalysts. An important feature of the multidisciplinary research team is the integration of research and education through broader academic and research training of students in fundamental materials science, environmental science, and related technological areas.